1997 Industrial Mathematics Modeling Workshop for Graduate Students

For the 1997 Industrial Mathematics Modeling Workshop for Graduate Students (IMMW97), an applied scientist or mathematician leads a team of approximately 6 graduate students in the solution of an actual problem from industry. Thus, applied mathematics graduate students are exposed both to the types of problems arising in industry and to the team approach of problem solving. This enriches their graduate educational experience, and can provide valuable training in the event the students choose a non-academic career. Boeing, Kodak, Michelin, and the NSA are likely to be represented by the industrial problem presenters at IMMW97. We strongly believe that workshops, such as the one proposed here, are one of the best ways to heighten students interest in industrial mathematics, to improve students vision about the type of mathematics and science that should be learned, and to accelerate the cross-fertilization between the applied sciences and mathematics. This workshop is modeled after the successful workshops, ``Industrial Mathematics Modeling Workshop for Graduate Students,'' held the past two summers at North Carolina State University. Last year's workshop was organized by Professors Tran, Reitich, and Scroggs. In addition, Prof. Reitich, in cooperation with Lord Corporation, was one of the problem presenters. This workshop series started in the summers of 1993 and 1994 at the Claremont Graduate School. Both of these workshops were organized by Professor Ellis Cumberbatch of the Claremont Graduate School. This GOALI project is jointly supported by the MPS Office of Multidisciplinary Activities (OMA) and the Division of Mathematical Sciences (DMS).